Adding Families to the Equation in Applachia -- A Planning Grant

9705042 Royster Adding Families to the Equation in Appalachia is a multi-state collaborative effort to improve parental involvement in science, mathematics, and technology education in a region of Central Appalachia noted for its persistent poverty and isolation from opportunities. During the planning grant period, project staff and consultants will use key stakeholder groups to generate and test preliminary project ideas and will enhance and consolidate relationships among collaborative partners in 66 counties in six state of Central Appalachia. The planning is essential to build collaboration across the six states and to develop a strategy that will be successful in a region with low educational attainment and limited science and technology resources.